Mathematical Sciences: Model Theory

This project is directed at problems in model theory concerning aleph-zero-categorical and related theories, models of Peano Arithmetic, and the model theory of partially ordered sets, all active topics in mathematical logic.